RUI: The Use of Antibodies to Study the Topology of Thylakoid Protein Complexes

Polyclonal and monoclonal antibodies specific for surface determinants of three protein complexes isolated from spinach thylakoid membranes will be isolated by affinity adsorption to rightsideout or insideout thylakoid membranes. These side- specific antibodies will be used to identify those proteins which display antigenic determinants to the aqueous milieu in which the thylakoids are suspended. Comparison of those proteins with stromal exposures with those proteins displaying lumen exposures will indicate which proteins are transmembranous. In other experiments, monoclonal antibodies will be used to demonstrate which proteins lie beneath the four lumen side extrinsic proteins which are involved with water oxidation. Together, these experiments will greatly enhance our understanding of the topology of the selected protein complexes, thus allowing the development of increasingly sophisticated structure/function models of the process of photosynthetic energy conservation. %%% The overall objective of these experiments is to increase our understanding of the transverse orientations and topologies of three protein complexes required for photosynthetic energy coupling. The proposed research will enhance the development of more sophisticated and topologically correct models of these protein complexes and lead to a better understanding of photosynthesis.